Truncation of Antler and Sonoma Orogenic Belts: Tectonic Significance of Prebatholithic Structural Breaks, Eastern Sierra Nevada, California

The Sierra Nevada batholith in eastern California may conceal major sinistral or dextral faults that truncate older structural trends. Within the batholith are several pendants of metamorphic rocks that extend across several intrabatholithic breaks inferred from strontium isotopic data. This project will examine these rocks to determine their structure, stratigraphy and U-Pb geochronology in order to test whether there are structural breaks that coincide with the isotopic changes in the batholith. Results will bear on major problems in the reconstruction of the southwestern United States during the Mesozoic.